Experiments on NO of Aeronomic Interest

SRI International proposes to perform three experiments of aeronomic interest. We will use our new ability to access the quartet manifold of NO for the purpose of studying the kinetics and spectroscopy of NO (a4). We will use a beam technique to make it possible to measure all the vibrational levels of NO(a4) up to the dissociation limit. NO(a4) is a species that is generated in the terrestrial and Venusian atmospheres by atom recombination, yet is almost totally unknown in laboratory studies. We will develop a stimulated emission pump/dump technique, involving high vibrational levels of the NO(B) state, that will enable us to measure vibrational levels in the NO ground state up to at least v = 35, well above present limits.